Mathematical Sciences: Presidential Young Investigator Award

The achievements and the promise in research of Professor Greg W. Anderson of the University of Minnesota have been recognized in a Presidential Young Investigator award. This award will further support the work that Dr. Anderson has been con- ducting in number theory and the arithmetic aspects of positive- characteristic algebraic geometry, especially the theory of Drinfeld modules. This research is in the mathematical area of the algebraic geometry of positive characteristic. Although the field of algebraic geometry originated with notions of continuously varying geometric structures like lines and planes, in this context the discrete takes over, and methods akin to those from the theory of whole numbers are most useful. Reciprocally, the algebraic geometry of positive characteristic is now having great influence on the Theory of Numbers, and is finding application in Computer Science and Coding Theory.